Continued Study of Various Properties of Natural and Triggered Lightning Discharges

This is an observational and experimental study of natural and artificially triggered lightning at laboratories in Gainesville and Camp Blanding, Florida. Five projects will be carried out:

1. Study of the electromagnetic field close to lightning.
2. Analysis of the lightning energy balance.
3. Characterization of the initial stage of upward lightning.
4. Analysis and modeling of past data.
5. Documentation and study of the lightning attachment process.

Results will advance the understanding of lightning physics and have implications for the physics and chemistry of clouds and the interaction of lightning with the upper atmosphere. In addition, the work provides information needed for effective lightning mitigation and contributes through the popular press and television to public awareness of lightning hazards.